n-Widths and Singular Perturbation Problems

Singularly perturbed partial differential equations are
used to model boundary and interior layers in transport
and fluid flow, and in high frequency wave propagation.
It is difficult to approximate the solution to these equations
because of regions of rapid change in the solution.
The best approximation properties of solutions to
some singularly perturbed linear partial differential
equations will be studied. The research will build on
some recent work of Kellogg and Stynes that treats a
singularly perturbed self adjoint problem. Equations that
model convection and wave propagation will be studied.
The goal is to obtain the best approximation properties
(in the sense of Kolmogorov) when the data of the problem
are restricted to have a specified smoothness. A
successful resolution of these best approximation
problems will lead to asymptotic expansions of the
solution with minimal smoothness requirements on the
data, and hopefully to better numerical methods for the
numerical computation of these solutions.

Physical systems that involve boundary and interior
layers are of considerable importance in industrial
applications. A typical example is the turbulent layer of
air near an aircraft wing. Wave propagation problems,
arising e.g. in radar or ultrasound are important in
both medical and military applications. These seemingly
different problems are similar in that there are
phenomena taking place over a very short span of distance or
time. This leads to difficulties in calculating the behavior
of such systems. The research under this award will study the basic
approximation properties of the equations governing these
systems.